Engineering Research Equipment Grant: Computer and Instruments for Material Characterization

This engineering research equipment grant is to acquire three separate pieces of equipment, each of which is important to the continued research progress of the Cornell Injection Molding Program - an interdisciplinary research group in the Engineering School at Cornell University which has received continuous NSF funding since 1974. The acquisitions include (1) computer hardware for upgrading a heavily used computer facility in various areas related to the injection molding of thermoplastics as well as thermosets, ceramic-filled polymers and semi-solid metal alloys; (2) a high-temperature/high-pressure capillary rheometer which will be used for establishing more accurate and reliable material-property data such as melt viscosity in support of computer-simulation and process-control work; and (3) a tensile tester for plastic specimens which will be used for experimental verification of research aimed at development of predictive models for the load-deformation behavior of short- fiber-reinforced injection-molded parts.